High-Level Synthesis for Hierarchical Testability

This research is concerned with finding efficient hierarchical testability techniques for controller-data path systems. The approach is to start with module level test sets, derived for any suitable fault model, and use high level synthesis to ensure that these test sets can be combined into a system level test set which can provide complete test coverage of all the embedded modules. The aim is to invent algorithms that reduce test generation and application times, yet obtain complete, or nearly complete, system level test coverage with little or no area and delay overhead. The testability techniques are being embedded into algorithms for scheduling and allocation. Also being explored are methods for performing synthesis with both low power and testability as design criteria.